Collaborative Research: Texas-Oklahoma Representations and Automorphic forms (TORA)

This award provides support for two weekend conferences, one at the University of North Texas in Fall 2011 and the other at Oklahoma State University in Spring 2012. Each conference will feature two or three prominent guest speakers from outside the Texas-Oklahoma region, in addition to other participants including students, post-doctoral researchers, and junior faculty. Regional graduate students and researchers will also give talks describing their work. It is expected that the conferences will facilitate collaborations and interactions among the students and researchers in the region who work in the areas of Automorphic Forms, Representation Theory, and Number Theory. These conferences are planned as the first two of the Texas-Oklahoma Representations and Automorphic (TORA) conference series, pending continued funding. The TORA conference series is planned to consists of semi-annual meetings, hosted by University of North Texas, Oklahoma State University, and University of Oklahoma, on a rotating basis.

Over the last century, the theories of automorphic forms and representations have grown enormously. Important applications impact various fields of research, ranging from coding theory, algebraic geometry, and topology to Kac-Moody algebras and quantum field theory. The interplay of automorphic forms and representation theory has been especially fruitful, and many surprising and deep results have emerged. The TORA series will emphasize the interplay between automorphic forms and representations, both in the classical and adelic languages, and other related topics.